REU: Undergraduate Research in Biology and Molecular Biology

This is a Research Experiences for Undergraduates project. It provides research experiences for ten students at Princeton University. Students will participate in projects involving biology and molecular biology.